Forum on Cyber Resilience

The National Academies of Sciences, Engineering, and Medicine’s Forum on Cyber Resilience, partly supported by this project, is a roundtable formed in 2015. It brings together experts from industry, academia, and government to identify new technologies, share best practices, look ahead to trends, and offer insights for researchers, educators, and funders. The Forum will examine how advances in areas such as artificial intelligence, cybersecurity, and quantum information science affect cyber resilience. It will examine challenges that are shared across many systems and sectors. These include ensuring systems are secure and reliable (cyber assurance), building systems that people can trust, and managing risks in today’s highly connected networks. It will also explore how better system design and policy frameworks can strengthen resilience.

In the next three years, the Forum will hold three meetings a year on priority topics chosen by its members. It will also host focused workshops each year to address key research needs and produce two issue papers each year. These public workshops and papers will share key insights, identify research gaps, and improve understanding of effective strategies and future research needs. The papers will describe current knowledge, highlight major challenges, and inform decision makers and the public through peer-reviewed outputs. Together, these activities will help align efforts, guide research priorities, and strengthen the nation’s ability to address cyber resilience challenges.